A Multi-Campus I/UCRC for Supply Chain Research

This proposal is to plan for a new partner to join an existing mutli-university I/UCRC that aims to promote a research program of interest to both industry and universities on supply chain management. This existing multi-university center will be able to have an even broader impact on the industry through having its existing resources enhanced by the addition of this partner and the other two partners that are also being recommended to receive a planning grant. Three partners, of which this is one are the University of Florida, Lehigh University and the University of Minnesota.

The proposed Center's goal is to focus on tackling the sophisticated challenges and interdependencies of logistic and distribution, simplifying and advancing communications systems by identifying new circuits and new circuit-design techniques as well as new methods in systems design and information technology.

The new partners will bring to the existing center, a focus on:
- Demonstrating the value of operations research in business operations
- Enabling industry partners to harness available technologies, and
- Creating new practice-based research and education models for engineering curricula.

The proposal deals with an area of significant need and by assembling these three additional institutions into an already strong team, their added breadth and depth enhances the prospects for success. The existing institutions in this Center, together with the three new ones will be a national resource on this topic.